A Broad Research Program on the Sciences of Complexity

The Santa Fe Institute (SFI), a non-profit research and graduate teaching organization, proposes to continue its programs of interdisciplinary research and education on the principles that determine the dynamic behavior of complex systems. The Institute is founded on the premise that there are common principles that determine the behavior of various complex systems, especially systems that are sufficiently complex to learn and adapt. Our approach is to understand these principles by studying specific systems in the context of more general themes. Since 1987 it has operated a center in Santa Fe where leading scholars in the physical, computational, life, and social sciences come together. The project includes: a) A program on the basic physics, mathematics, information sciences, and computational aspects of complexity including work on the shared properties of complex systems, and innovative computer modeling. b) A residential research program on adaptive computation employing the techniques of general algorithms and classifier systems and including work on developing computational and visualization tools. c) A residential research program on economics as a complex, adaptive system. d) A program on life sciences, that includes modeling of the immune system, generic data analysis, and models of protein folding. e) A Summer School on the Sciences of Complexity in Santa Fe, managed by SFI in collaboration with a number of other institutions.